Selective Change and Adaptation Revealed Through Archaeology: The Unalakleet River, Alaska

The Unalakleet River corridor in Western Alaska presents unusual opportunities for analyzing cultural adaptation and change. In spite of the influences of Western culture, and the adoption of new technologies, cultural conservatism among Native groups persisted, and could be a source of social conflict. This dissertation examines how change is manifested in small groups (households) at the time of Euro/American contact. A 19th century village is examined in detail through excavation, artifact and architectural analysis. The data will contribute to a clearer understanding of stability and change among Native Americans in general and Native Alaskans in particular.